U.S.-Japan Cooperative Science: Nuclei with Double Strangeness

9603051 Franklin This award supports a three-year collaborative research project between Professor Gregg Franklin of Carnegie Mellon University and Professor Kenichi Imai of Kyoto University in Japan. The researchers will be undertaking studies relating to nuclei with double strangeness. Our understanding of the structure of the nucleon and the interactions between nucleons is based on quark-gluon inspired models which, at this time, include a mix of phenomenological inputs. These models will be tested and refined by extending them into systems which contain strange-quarks in addition to the up- and down- quarks found in the neutron and proton. Systems with two strange-quarks are particularly interesting. They can be created using beams of K- mesons and identifying reactions which result in an outgoing K+ meson. At present, two suitable beamlines exist in the world; one at Brookhaven National Labs and one in Japan at the National Laboratory for High Energy Physics. The operational parameters of the two lines differ considerably. Researchers from both countries will cooperate to maximize the utilization of these two beam lines by targeting appropriate experiments and sharing resources, knowledge, and manpower. Through the exchange of ideas and technology, this project will broaden our base of basic knowledge and promote international understanding and cooperation. ***